Semiconductor Device Modeling, Numerical Methods and Simulations

This proposal is a continuation of the research supported by NSF Grant ECS-9627849. The objective is to study the modeling, mathematical analysis, and in particular novel, reliable and efficient numerical methods for semiconductor device simulations. The emphasis of the proposed effort will be on the analysis and simulation of the recently developed high field (HF) models without and with energy transport, the hydroynamic (HD) models, the kinetic models, the energy transport, (ET) models, the quantum related models, and optoelectronic device models involving the coupling with the Maxwell equations. Both time accurate models and numerical methods and steady state solutions will be considered. Collaborations and communications with device physicists, engineers, and applied mathematicians, will be maintained, to investigate device simulation problems from physical, mathematical, and numerical points of view.